Long-term Trend in Net Mass Accumulation at South Pole

This award is for support of a program to establish a long-term monitoring network of accumulation stakes at the South Pole. The scientific objectives are to determine the long-term history of the "undisturbed" net accumulation regime and to assess the "station effect" upon the spatial distribution and magnitude of net accumulation at the South Pole. Thirteen shallow (< 12m) cores will be collected to examine accumulation rate variability since 1955. The goal is to leave in place an optimally designed array of poles, the measurement of which can be incorporated into the routine scientific observation program at South Pole Station.